Persistence in Science Majors: A Longitudinal Analysis of SAT and GRE Data (Sociology)

The main objective of this research is to determine what undergraduate school characteristics and student background factors are associated with persistence in mathematics, natural sciences, and engineering, particularly for women and minority students. The data set is based on a longitudinal sample of 69,000 students who had SAT scores, GRE scores, and accompanying questionnarie responses. These data include major field of study at three points in time: intended major at high school graduation, actual undergraduate major, and intended graduate major. The prediction of persistence in these fields will be analyzed with multinomial logit or logistic regression models. Interactive activities include a course entitled Psychological Measurement in Survey Research, guest lectures on recent works, a talk to students about ETS research and choice of science careers, statistical advising to faculty and students, and participation in social activities with Hispanic and other minority faculty and students. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.